Geometric representations

The principal investigator's proposed research has three parts. The first
constructs representations using tools from topology and symplectic
geometry, especially the theory of Goresky-Kottwitz-MacPherson, and
extends those tools to larger classes of varieties. The second tackles
algebraic and combinatorial projects that solve problems in the geometry
of the associated varieties. This subject is often called modern Schubert
calculus; specific projects include determining multiplication formulas
inside the cohomology ring of flag varieties and Grassmannians. The third
focuses on computational and enumerative geometric properties of
varieties, such as Hessenberg varieties, that arise in areas of
representation theory including the Langlands program. The projects will
identify fundamental geometric properties of the varieties, like
pure-dimensionality, that are critical to advances in representation
theory.

Geometric representation theory builds algebraic structures called
representations from geometric objects. This leads to deep insights
connecting different mathematical disciplines, including algebra,
geometry, combinatorics, and mathematical physics. Crucially, a geometric
representation establishes a table of correspondences between geometry and
algebra. On one hand, the table answers questions in representation
theory via geometry; on the other, it answers questions in geometry using
algebra and combinatorics. The proposal includes projects to foster
student development at all levels and to provide mentoring for women and
other underrepresented minorities in mathematics.